The Organization of An Invited Workshop to Assess the State-of-the-art Nanotribology and to Identify Critical Research Issues

A workshop will assess the state-of-the-art and identify critical research issues in nanotribology in several areas of overlapping interest: MEMS, meso-manufacturing, nanotechnology, and microsystems in general by bringing researchers from these diverse communities together. The workshop will include participation from experimentalists, theoreticians, and numerical modelers in an evaluation of nanotriboilogical problems of stiction, nano-scale friction and wear, MEMS lubrication, etc.